Magnetic Resonance and Spectroscopy under High Pressure

9306931 Chan In this project in the Experimental Physical Chemistry Program of the Chemistry Division, Chan will study the pressure dependence of a number of dynamical processes in low-temperature solids using ESR techniques. A diamond anvil cell (DAC) will be used to generate very high pressures at temperatures as low as liquid helium. Processes such as spin diffusion, libration, exciton transport, and reaction rates in quantum tunneling systems will be examined. Systems to be examined include organic, biochemical, and fullerene molecules. %%% In this project Chan will apply high pressure to various solids in order to elucidate the nature of both physical and chemical processes which occur as a result. The pressure provides a method of modifying distances and orientations on a molecular level, and thus affects dynamic processes such as chemical reactions. This work will lead to new knowledge and insight which is unattainable otherwise. ***